Materials and Thin Films for Spintronic Devices

The project will be devoted to the growth of III-V diluted magnetic semi-
conductors (III-V DMSs) ternary compounds in which the anions are re-
placed with a member of the 3d-transition group. The motivation and goal of
the program are to explore and establish the conditions for successful growth
of single crystals which will be materials suitable for investigating the ex-
traordinary physical phenomena originating in the large magnetic moments
of 3d-transition-ion (3d-TMI) and their role as acceptors. The simultaneous
presence of free holes and the large magnetic moments provide the ingredi-
ents for novel phenomena associated with spin-polarized charge carriers. The
growth will initially focus on the incorporation of Mn, Co and Fe into GaAs,
InP, GaP and InSb by thermal diffusion and melt growth. Spectroscopic
(Fourier Transform Infrared, Raman and photoluminescence, modulated re-
flectivity/transmission and magneto optic characterization at Purdue and
those based on magnetic, electron-paramagnetic-resonance, and non-linear
spectroscopy by international collaborators will provide invaluable feedback
to the crystal grower. Another collaboration will address the production of
ultrapure starting material and fabrication of substrates suitable for molec-
ular beam epitaxy (MBE). Basic science and device related work will be ini-
tiated during this phase. Besides the crystal growth program implemented
by the Co-PI, students will participate in the characterization activities and
will acquire a healthy appreciation of growth techniques. This exposure and
involvement will prepare them for the scientific/technical workforce of the
21st century.

The aim of the program is to provide a "steady state-" supply of well
characterized III-V diluted magnetic semiconductors to our ongoing research
on collective and localized excitations of vibrational, electronic, and magnetic
character. The access to bulk single crystals as well as material as MBE-
grown epilayers and quantum well structures will give the participants the
intense excitement of basic research significant in device applications.